A Focus on Developing Innovative Engineering Students - Year 2

This is a continuation of earlier work to provide educational experiences that enhance development of innovative and creative skills through interactive computer modules and open-ended problems in each required Chemical Engineering course. The modules are designed to complement traditional approaches to learning engineering fundamentals. The modules and problems are developed through student and faculty interaction with industrial companies and represent problems of current interest to the companies. The grantee provides funds for this project that are approximately an equal match for the NSF award.